Stochastic Inverse Problems in Biophysics

The investigator develops analytical and numerical
reconstruction techniques to recover quantities important in
theoretical biophysics. The systems considered all include
stochastic effects, and the measurements to be considered are
distributions of first passage times. Developing physical,
statistical mechanical models, he uses the first passage time
distribution function to construct parameters or functions in the
physical model. Of particular interest is the reconstruction of
macromolecular potentials from bond-breaking times. An analysis
of bounds and how measurement errors affect the stability of
reconstructed quantities is undertaken.

The investigator develops mathematical tools, theoretical
and computational, that allow quantitative reconstruction of
unknown quantities from measured data in fluctuating, random
systems. This class of problems is called stochastic inverse
problems. Two examples are how molecular bonds break, and how
chemical reactions progress. Typically, for the bond-breaking
problem, the detailed molecular interactions are assumed known,
from which the behavior of the bond (e.g. how likely it is to
break) is theoretically predicted. Similarly, in chemical
reactions, specific reaction rates and chemical networks are
assumed. One then solves the rate equations with these "given"
parameters to find, say, the concentration of a chemical species
as a function of time after the start of a reaction. In the
formulation of the inverse problem, we do not know the
intermolecular forces, or the rates of chemical reactions.
Rather, we measure the lifetime of a bond before it breaks, and
from these data, infer the microscopic molecular interactions.
In chemical reactions, we attempt to use the measured
concentrations to deduce the chemical reaction rates. These and
related inverse problems have wide applicability in numerous
disciplines, and can potentially optimize and simplify industrial
processes such as drug design and drug delivery. Moreover, the
techniques can provide valuable theoretical tools with which to
probe fundamental genetic regulation processes inside cells.